Development of Environmental Technology Laboratory and Field Manual

Montgomery County Community College has upgraded its Environmental Technology curriculum and is producing a higher caliber technician and is providing continuing education that is resulting in new careers in the technologies for a growing unemployed work force. Our program has been developed using DACUM from the merging of ideas and experiences of engineers, educators, and technicians in the field. The goal of the curriculum is to give the students a fundamental background in general environmental theory and application of this theory in field and laboratory exercises and analysis. The curriculum emphasizes good field and laboratory techniques, computer-aided data analysis, and both written and oral communication of results. Equipment has been purchased for the field and laboratory courses which are designed to reinforce the environmental principles presented in the lectures. This equipment includes computers, software and peripherals for performing data analysis and presentation.